Electron Proton Physics with ZEUS at HERA

This grant is for continued support of research aimed at the study of the microscopic structure of the proton using a new facility (HERA) in Hamburg, Germany. The investigator and her collaborators have built a large particle detector (ZEUS) which is recording the head on collisions of electrons and protons, both of which have been accelerated in HERA to very high energies. The investigator's major role up to this time has been to provide a calibration of the calorimeter. Her continued activities are now to concentrate upon the collection of data, and beginning of analysis. She also plans to complete analysis of data from the Mark III spectrometer which was used at SLAC to study the decays of the psi particles into a number of rare modes.